Phase II of an Exploration of Areas of United States Interest in Japan/United States Manufacturing Research Exchange; Irvine, California; July 11-14, 1988

This grant provides support for the pre-conference planning and conducting of the second Japan-United States Conference of Manufacturing Research. This work includes the preparation of a final report as well as the conducting of post conference briefings for interested segments of the United States manufacturing research community.